Quantifying the Temporal Characteristics of Congestion Events in the Internet

The objective of this research is to lay the foundation for a QoS metric that can be easily
understood and can be used for the design of future packet networks. The premise of the
proposed research is that Quality of Service (QoS) mechanisms have not been widely
employed because of both their complexity and their lack of relationship to user
perceived performance. Therefore, it is currently difficult to justify the investment in
complex QoS technologies while their value to the end customer is unknown. There have
been cases where commercial networks have been over provisioned, resulting in all users,
independent of QoS requirement or priority, receiving the same service. Based on these
experiences network customers are reluctant to pay extra for QoS.
Historically, the telephony QoS metric, call blocking probability, was not only
easily understood but provided the foundation for network design. Clearly this metric is
not suitable for packet networks like the Internet, since packet networks experience delay
and packet loss in the presence of congestion. Recently, it has become increasingly
apparent that temporal characteristics of the congestion episodes have the dominant effect
on user perceived QoS. Reinforcing the increasing importance of the temporal
characteristics of congestion is the recent work in the Internet Engineering Task Force
(IETF) on measurement-based temporal QoS metrics. Once congestion occurs at a
bottleneck point in the network it tends to persist and cause a user observable
impairment. Thus, there is a need to increase our understanding of the temporal
characteristics of congestion. To address this issue a new QoS metric is defined, the rate
of congestion events per unit time, and a research effort identified to develop analytic
methodologies to study this QoS metric. Specifically, this research will focus on: 1)
predicting the frequency of congestion events for long range dependent (LDR) like
traffic, i.e., fractional Brownian motion, in a network context, 2) developing simple
approximations for predicting the frequency of congestion events, 3) validating the
resulting prediction methodologies for networks using real high resolution traffic
measurements, 4) developing efficient techniques to measure the rate of congestion
events, and 5) relating the congestion event metric proposed here to new measurement-
based temporal QoS metrics. A rigorous definition is proposed for the time between
congestion episodes, which leads to the application of first hitting time analysis for its
prediction. The proposed research will exploit some recent theoretical results as well
develop new methods for predicting first hitting times for a realistic traffic.
Network users have been struggling to quantify their perceived performance. The
new QoS metric proposed here summarizes the network component of performance in
one easily understandable number. Equally important, the proposed metric is structured
in such a way that it can be used for network engineering. We expect the proposed
metric, combined with accurate prediction techniques, will play an important role in
designing future packet networks.